Workshop on Commercialization of the Internet and NREN

This workshop will identify and evaluate possible scenarios for the commercialization of services that will be available on the Internet and the proposed National Research and Educational Network. The issues to be discussed will include the larger The participants for this planning workshop include experts in from companies in the telecommunications industry, institutions of higher education, government, and the funding institutions--the National Science Foundation and the Office of Technology The workshop will be held on March 1-3, 1990.